Academic, Mentoring and Financial Support for Upperclass Students in Computer Science, Engineering, Mathematics and Technology

This program is a multi-faceted approach to retain and graduate talented, but financially needy, juniors and seniors in mechanical engineering, civil engineering, chemical engineering, electrical engineering, engineering administration, computer-aided drafting and design technology, mathematics and computer science and to assist them with career placement. The project builds on well-established academic support services, a mentoring program, career services and placement, established and thriving cooperative education and internship programs, and industrial partnerships through industrial advisory boards and research projects. The student support structure includes mentoring by both faculty and industry representatives through learning communities, as well as synchronous and asynchronous on-line conversations among scholars, faculty, and industry representatives.